REU: Summer Undergraduate Research Program in Developmental Biology

This award will support the participation of 11 undergraduate students each year in the Research Experiences for Undergraduates program offered by Washington University School of Medicine in St. Louis, MO. Each student participant will spend ten weeks engaged in developmental biology research under the direction a faculty mentor of his/her choice, selected from among ca. 40 faculty members who have active, well-funded research programs and who study developmental mechanisms in a wide variety of experimental systems. To permit students to view their research projects in a broader context, five types of supplemental activities will be provided: (i) a beginning-of-the-summer retreat at a state park, where participants will meet with each other, explore the issue of research ethics, and become introduced to the study of developmental biology; (ii) workshops dealing with important model organisms, methods, and paradigms in contemporary developmental biology research; (iii) faculty seminars designed specifically for the students; (iv) participation in a student developmental biology journal club; and (v) and end-of-the-summer research symposium at which students will make presentations summarizing their research accomplishments. Opportunities for frequent, informal social interactions will also be provided. This award will foster the continued education and training of individuals who will be part of the next generation of basic researchers in the developmental biology.